Improving the Accuracy of Forecasts: A Process InterventionCombining Social Judgment Analysis and Group Facilitation

Considerable empirical evidence suggests that groups seldom do as well as their best members on judgement tasks. To address this problem, a Group Decision Support System (GDSS) has been developed that incorporates techniques for reducing both the problems with interaction processes and the problems with cognitive processing that groups face when making collective judgements. A preliminary evaluation of this GDSS demonstrated that the process enabled groups to perform significantly better than their most capable members on cognitive conflict tasks. However, experimental conditions were not sufficiently representative of environmental conditions to warrant broad generalization of the results. This research extends the previous work by using judgment tasks frequently faced by managerial decision makers, improving the quality of the GDSS, and increasing the motivation of the participants., In the initial phase of the study, two expert forecasting tasks will be developed for use in the experiment and professional facilitators will be hired and trained to apply the process correctly. Next, an experiment, involving 24 five-member groups, will be conducted. To ensure that participants are motivated to perform well, they will be paid differentially according to the quality of their group judgments. In the final phase of study, the process intervention will be introduced into several organizational settings.